Collaborative Research: Cold-season gas exchange of arctic plants - resolving winter carbon and water balances of Alaskan arctic tundra

Abstract

Proposal:

Collaborative Research: Cold-season gas exchange of arctic plants - resolving winter carbon and water balances of Alaskan arctic tundra

P.I.:

Gregory Starr
Behzad Mortazavi
University of Alabama Tuscaloosa

Steven F Oberbauer
Florida International University

Proposal # 0806776

Investigators from the University of Texas Arlington and Florida International University have received funding to investigate physiological processes of arctic tundra vegetation during the winter. The study will increase our understanding of physiological processes of arctic tundra vegetation under snow during the cold season and increase our knowledge of how these processes contribute to the carbon cycling and climate change. The project will investigate cold season plant physiology, carbon acquisition under snow, carbon turnover, sources of water for the plants during the cold season, mortality, and respiration rate sensitivity to predicted changes in temperature. The results are expected to provide new insights into plant physiology and carbon dynamics of two tundra ecosystems during the cold season.